Mathematical Sciences: Symplectic Geometry and Moduli Spaces

The proposed research deals with interrelated subjects in symplectic geometry, quantization and low dimensional topology. Methods of non-commutative algebras and geometry will be applied to a number of questions in geometric quantization, particularly to the study of moduli of flat connections on bundles over Riemann surfaces. This is expected to lead to further insight into knot invariants and three-dimensional manifolds related to conformal field theories.